Acquisition of a High-Field Magnet Optical Cryostat for Magneto-Electro-Optics

Magneto-electro-optics represents a new facet of optical investigations in which electric fields perturb magneto- optic effects and magnetic fields perturb electro-optic effects. Many fundamental magneto-optic effects in magnetic semiconductors and their superlattices require large magnetic fields to resolve spectroscopic features in dilute magnetic materials with weak magnetization. This project provides funds to Purdue University for the purchase of a 9 Tesla transverse-field optical cryostat for solid-state research on magneto-electro-optic effects in semiconductors, superconductors and magnetic oxides. The high magnetic field will allow access to new physical phenomena that are currently inaccessible. The apparatus will be used by three principal investigators and their students engaged in four independent, but related, research projects. The high-field cryostat is necessary for studies of Faraday Effect, Voigt Effect and Excitonic Zeeman Effect, especially with respect to saturation features. Purdue University has a strong effort in magnetic semiconductors with substantial growth and fabrication facilities that would fully support the research needs.